The 16th Penn State Plant Physiology Symposium: RNA Biology - Novel Insights from Plant Systems to be held May 18-20, 2006 at Pennsylvania State University

The 16th Penn State Symposium in Plant Physiology, entitled "RNA Biology: Novel Insights from Plant Systems," will be held on May 18th-20th, 2006, at Pennsylvania State University. The field of RNA biology has experienced enormous growth in recent years, and plant biologists have been at the forefront of many of the important discoveries in this field. The Symposium program has been designed to bring together plant biologists in the RNA field, key scientists who study RNA function in non-plant systems, and RNA chemists. The Symposium will thus facilitate interactions and foster collaborations between plant biologists and other RNA biologists and chemists. In addition, the Symposium will provide educational and training opportunities for students and young scientists. Through press releases prepared by the Penn State Eberly College of Science Office of Information, information from the symposium will be disseminated to the general public.